Purchase of Optoelectronic Prototypes by the U.S. Broker - Interagency Transfer

9530730 French The Joint Optoelectronic Project (JOP) is a joint program entered into by the U.S. and Japanese Governments to provide prototyping services for experimental optoelectronic devices and modules. The goals of the project are to establish a joint research project in optoelectronics to improve the availability of novel prototype optoelectronic materials, devices, circuits and modules by providing users with access to leading edge optoelectronic fabrication facilities, to stimulate research activities in optoelectronics for computing in both the U.S. and Japan and to encourage effective commercialization. The funds provided in this award will be used to help support U.S. user participation in the JOP. It is anticipated that the novel, custom-designed optoelectronic devices and modules obtained using the broker facility will advance device and systems research activities within the academic community.